NSF Computational Engineering Workshop

Numerical and computational techniques are important for all engineering fields. Such techniques in many cases have underlying basic principles which benefit a large cross-section of engineering disciplines. Examples include relaxation techniques, fast Fourier transforms, wave propagation solutions, and numerical simulation techniques. This meeting brings together experts from diverse disciplines to address basic aspects of computer engineering and to present their views and recomendations regarding future directions of the field.